1995 Eukaryotic DNA Replication Conference held in Cold Spring Harbor, NY on Septemeber 6-10, 1995

9507324 Stillman The meeting, "Eukaryotic DNA Replication" will be held at Cold Spring Harbor , September 6-10, 1995. This conference is held every two years and is devoted to topics related to chromosome duplication, structure and function and will include active areas of research in cell growth and cell cycle control, DNA amplification, virology and developmental biology. Senior scientists, post-doctoral fellows and graduate students will meet in an environment conductive and encouraging to intense communication. ***